Non-linear signal representations: theory, algorithms and applications

Aldroubi
DMS-0807464

The investigator develops a mathematical framework together
with fast computational schemes for nonlinear signal
representations that are "optimally" compatible with observed
data (e.g., a set of signals, images, or videos). The data can
be finite or infinite and the models can live in finite- or
infinite-dimensional Hilbert or Banach spaces. The framework can
be viewed as an extension of the standard least squares to a
nonlinear setting. The investigator uses this framework to
unify, extend, and complement some of the techniques used in
compressed sampling theory, the generalized principal components
analysis, and the dictionary design problem. He applies the
results to several problems in engineering and biomedicine
including data classification and segmentation (e.g., face
recognition, brain morphology, DNA sequence comparison, movement
tracking), and signal modeling (e.g., for signals with finite
rate of innovation).

Many of the new technologies use digital signal processing
techniques in their functioning, e.g., telephone and computer
networks, medical imaging devices, audio equipment, etc. These
technologies, which are producing greater and greater volumes of
data, gave rise to new nonlinear techniques and paradigms for
acquiring, processing, analyzing, and transmitting the data. In
order to take advantage of these novel techniques, a thorough
understanding of the structure of the underlying signals and data
is fundamental. This project develops techniques for learning
the nonlinear data structure from a set of observations. It has
direct applications in data mining, data classification,
segmentation, and tracking moving objects in video sequences. It
also has direct applications in data compression, noise removal,
and data transmission.